Interfacial Transport Processes--The Acquisition and Use of an Infrared System for Thermal Imaging

ABSTRACT R. O. Narayanan University of Florida CTS-9500393 The Department of Chemical Engineering and the Center for Surface Science at the University of Florida will purchase an Infra Red (IR) Thermal Imagine system. The equipment will be used for several projects. The IR Thermal Imaging system will be used to map out the thermal fields at a liquid gas interface in flow systems which are driven by interfacial convection and in static systems where the temperature and heat transport is affected by surfactant monolayers.